Principles of Embedded Language Design

9404786 Hudak This project is in the area of programming language design and implementation. The project will develop new methodologies and tools for the design and implementation of domain specific languages (DSL). The project will apply the following ideas to the embedded language design. Extensible Language Design. Since a large portion of every language design effort is concerned with the design of the syntax, and other minor issues such as conditional statements, boolean and arithmetic operators, the project will investigate the use of generic syntax for the design of DSL's. The idea is to extend the generic syntax in a modular fashion to meet the needs of specific domains. Rapid DSL Realization Using Partial Evaluation. In order to develop DSL compilers quickly, the project will explore the use of partial evaluations. Although the resulting compilers will be less efficient than hand-crafted compilers, they will be constructed quickly and automatically, and they are provably correct with respect to the interpreter specifications. First-Class Tools. The project will apply the methodologies developed by the PI for specifying language tools such as debuggers and profilers, to the development of tools for DSL. ***